Study of the Self-Assembly Growth Process by X-ray and Helium Diffraction

9311871 Eisenberger Grazing incidence synchrotron x-ray diffraction techniques will be used to investigate the adsorption on long-chain thiol alkyls onto metal substrates. Adsorption will occur from solution and from the vapor phase. A comparison of the two processes, their kinetics, and surface defect formation will be determined by the x-ray structure experiments. The results will be of fundamental interest for surface science, will provide new information about the self- assembly of molecules on surfaces, and will provide technologically relevant information about metal-organo interfaces. %%% The project will use intense x-rays from a synchrotron radiation source to examine the structure of monomolecular films of long- chain molecules similar to fatty acids. The molecules adsorb and chemically bond to metal surfaces and "self-organize" to form islands and eventually two-dimensional crystal lattices. The dynamics of island formation, crystal growth, defect formation, and other aspects of the monolayer films are only poorly understood. The structure studies will provide fundamental information about the self-organization of molecules in films and will provide technologically relevant information about the metal-oganic interface. ***